NSF Young Investigator

9357474 Hershfield This is a NSF Young Investigator Award in which novel perturbative techniques will be used to compute the nonlinear current-voltage characteristic for tunneling through a single strongly interacting atom or defect. This type of system can be realized in atomic asperity junctions, small area lithographically patterned tunnel junctions, point contacts and quantum dots. %%% ***